Controversies Over Genetic Engineering Research for Plant Protection: An Analysis of Values, Beliefs, and Ethical Concerns. Doctoral Dissertation.

Genetic engineering techniques may provide useful protection to agricultural plants. There is considerable controversy, however, over the potential environmental consequences of applying these technologies. Through document analysis and fieldwork, consisting of approximately 25 in-depth interviews with significant figures in the debate, this dissertation project will explore the diversity of positions over these issues. The different values, beliefs, and ethical concerns which underlie the controversy will be identified and examined; competing concepts of the public interest in biotechnological plant protection research will be articulated; and the potential for common ground will be assessed. Results will provide a useful historical record and information about the justifications associated with different positions. The project goals and credentials of the dissertation student and her advisors are very meritorious; the funds are necessary to support the special costs associated with the fieldwork and analysis; results will be recieved with interest; so support is recommended in the amount of $5,300.